Conference: Society for Research on Biological Rhythms 2026 - Time Matters: Biological Rhythms Shaping Life and Health

Biological rhythms permeate all aspects of life, regulating everything from single genes to entire ecosystems. The ubiquitous importance of biological rhythms makes timekeeping one of the fundamental “rules of life” on our planet, that can positively or negatively affect society in critical ways. Given the vital role of biological rhythms, the study of chronobiology is essential to all major questions in biology. The largest society of scientists involved in the quest for knowledge in this area is the Society for Research on Biological Rhythms (SRBR), whose primary mission is to connect researchers in the rhythms field and disseminate research to the public. To fulfill this role, SRBR hosts a biannual meeting, where its members gather to learn about the most novel and exciting research. The upcoming iteration of this meeting, SRBR 2026: Time Matters: Biological Rhythms Shaping Life and Health, aims to capitalize on an influx of researchers joining the field, providing an opportunity to integrate new disciplines into established paradigms and educate trainees on how to ask useful questions while conducting rhythms research. This project will advance the field and produce positive benefits in several ways. Notably, SRBR widely disseminates the most recent research in the field of chronobiology via seminars, workshops, social media, etc., reaching everyone from researchers to members of the public. Further, the confluence of so many experienced researchers at SRBR 2026 offers the opportunity to advance the training of the junior members of the chronobiology field. In these ways, this project will support SRBR’s efforts at advancing knowledge, supporting education, and serving society at large. This project advances NSF’s priorities in Biotechnology and Artificial Intelligence.

The Society for Research on Biological Rhythms (SRBR) was established to enhance and advocate for chronobiological research, a mission which is impart fulfilled via its biannual conference. With the breadth of research presented at SRBR 2026, support for the training aspects of this meeting presents two primary broader impacts. First, SRBR 2026 widely disseminates the most recent research in the field of chronobiology. Second, the confluence of so many experienced researchers will advance the training of the junior members of the chronobiology. This project will support junior researchers in our field by facilitating our efforts to host 1) the SRBR 2026 Trainee and Professional Development Day and Junior Faculty Workshops on-site on the day before the conference starts, 2) a pre-conference virtual mentoring event, 3) trainee development events during the conference itself, and 4) networking events that will allow first time students to not only interact with their peers, but to interface with senior researchers in the field.